COLLABORATIVE: EAGER: Seismic Survey of Lake Junin, Peru in Preparation for Deep Drilling

This grant will generate critical site survey information for planned deep drilling of Lake Junin (Peru). The team will carry out an airgun seismic survey of Lake Junin in order to estimate the sediment thickness, and to provide the spatial resolution needed for selection of the best deep drilling sites. The work would be completed in a short (~two week) field season, with results made available for an International Continental Drilling Program (ICDP) drilling workshop.
Lake Junin contains a sediment record that likely spans multiple glacial cycles—perhaps covering many hundreds of thousands of years, and it contains carbonates that can provide isotopic records of lake hydrology and regional climate with sub-decadal resolution. Numerous faculty and students spanning four decades have contributed to an extensive database on the lake and its watershed. However, Lake Junin has never been cored in its most deep sedimented areas, and has never been cored with a mechanical corer capable of penetrating the thick sedimentary sequences that lie under the center of the lake.
The Scientific Advisory Group of the ICDP has agreed that Lake Junin is indeed worthy of a deep drilling effort, and has funded up to US $40,000 for an in-country workshop to develop a science team for a deep drilling project. This workshop, which will be held in Peru, will bring together about two dozen scientists from the U.S., Canada, Germany and other ICDP countries. Although the Scientific Advisory Group of ICDP has expressed their enthusiasm for potential deep drilling of Lake Junin, they have also noted that improved seismic imaging of the Lake Junin basin is a prerequisite for ICDP drilling approval.

Expected results include a more complete understanding of the thickness and distribution of lacustrine sediment and intercalated glaciogenic sediment in the Junin basin, which will provide essential guidance for selection of appropriate coring equipment and drilling sites, and will enable estimates to be made of the length of sediment core that will need to be processed for any future deep drilling project.
The intellectual merit of the proposed work is grounded in the fact that an improved seismic survey of Lake Junin is a prerequisite for deep drilling, which, in turn, will yield sediment cores that can address several fundamental issues regarding tropical climate change during the late Quaternary. These include: 1) the degree of synchrony between the last several glacial cycles in the tropics and those in higher latitude regions of both hemispheres, 2) the degree of hydroclimatic stability that prevailed during interglacial and interstadial intervals, 3) the long-term evolution of ENSO during interglacial intervals, and 4) the relative roles of temperature and precipitation in governing glacier mass balances in the tropical Andes over multiple glacial, deglacial, and interglacial intervals.
The broader significance of the proposed research will depend on the successful development of a deep drilling project on Lake Junin. Such a project would provide an ideal platform for training numerous undergraduate and graduate students, and for promoting climate change research by our Peruvian colleagues.